Smart Reinforcement Strength and NDE with Hybird Composites for Concrete Structures

9319802 Nanni This project will investigate the feasibility of using several different types of fibers to increase the ductility of the group acting as a pretressing strands for use in concrete construction. The carbon fiber may also be used as a monitor for permanent damage in the concrete. Fibers to be considered are: carbon, aramid, and poly-vinyl-alchol, because they are stable in the alkaline environment of the concrete. ***